Interdisciplinary Instrumentation and Analysis Laboratory

The recent establishment of an Instrumentation and Analysis Laboratory at Northern Michigan University is providing science and applied mathematics students with instruction and laboratory experience in instrumental techniques and procedures, including data acquisition and analysis through interfacing with six microcomputer stations. These improvements are being implemented through a newly designed interdisciplinary course in Instrumentation and Analysis, and through expanded experimental work in advanced laboratory projects.